Algebraic Cycles On Splitting Varieties

The project covers a wide range of aspects in algebra such as
algebraic geometry, algebraic groups and motivic cohomology.
The investigator proposes to use theory of algebraic cycles in
geometry to study properties of splitting varieties of algebraic objects.
The first topic the investigator proposes to study is the canonical
dimension of an algebraic object such as algebraic variety,
quadratic form, central simple algebra, etc. The canonical dimension
measures complexity of the class of splitting fields of an algebraic
object. In particular, the investigator proposes to compute the canonical
dimension of projective homogeneous varieties and simple algebraic
groups. The investigator also plans jointly with A. Suslin to compute
the motivic cohomology of Severi-Brauer varieties and generalize
this computation to the case of generic splitting varieties of arbitrary
symbols. These varieties were used in the proof of the Milnor and the
Bloch-Kato Conjecture.

The main objective of mathematics is to provide an approximation to the
picture of the physical world. This project develops methods from
topology that studies continuous transformations of structures called
topological spaces and algebraic geometry concerning geometric objects
coming from graphing polynomial equations and called algebraic varieties.
This project is devoted to the study of certain fundamental problems
of motivic cohomology theory - a relatively new and very quickly developing
branch of algebraic geometry. The new areas of algebra that will hopefully
evolve from the work on the project will create new research opportunities
for mentoring graduate students and junior faculty and provide material
for graduate courses.